NSF-TCUP Planning Grant

Though this TCUP planning award Little Big Horn College, located on the Crow Reservation, will develop a comprehensive long-term plan for strengthening the institution's Science, Technology, Engineering and Mathematics (STEM) programs. The project will be divided into four phases: assessment of the current status of STEM curricula, infrastructure and student support; implementation of a 2-day planning retreat; development of the detailed long-range STEM plan; and preparation/submission of a TCUP implementation award proposal.

The institution feels that the planning process and the development of a long-term STEM plan will provide it with the potential to make significant and sustainable improvements in the STEM programs including better integration and leveraging of information technology.